Proposal for Research in Parallel Languages and Environmentsfor Computer Vision

This award is to support a postdoctoral associate to work in experimental computer science. The associate, J. Ross Beveridge, will be working with Dr. Takeo Kanade at Carnegie Mellon University in the Robotics Institute. He will be working in the area of parallel languages and software development environments for computer vision. The research will focus on the needs of computer vision. In particular low-level and intermediate-level computer vision. The goal is the development of a coherent parallel environment that is independent of any particular parallel architecture. The intellectual contribution of this research will be better understanding of how to support computer vision in parallel environments. A concrete product of this research will be a pilot system implemented on a new Sony parallel computer.